Center for Technology and Innovation Management Research

Northwestern University has established an Industry/University Cooperative Research Center as one of the centers of this type coming within the rubric of the NSF program of that name. The proposal is the final step in the NSF structure for establishing such a center, having passed through the initial concept paper and planning grant proposal stages. Both of these were approved during 2001.

The new research center focuses on technology and innovation management. The general description of the center and its plans were detailed in the planning grant proposal and have not fundamentally changed in concept through the planning period. There are, however, changes in the descriptions of specific research projects, responding to the final list of the center member organizations and their particular research interests.